Conference: Southwest Local Algebra Meeting 2025

This award supports participation in the Southwest Local Algebra Meeting at Arizona State University, which will be held March 1–2, 2025. The research presented at this conference will focus on recent advances across the broad mathematical field of algebra, and on applications of the field. The conference talks will aim to be understandable to the graduate student participants, exposing then to techniques from neighboring mathematical areas. These student participants will also be given the opportunity to present their own results at scheduled poster sessions. The wide range of topics and the event schedule are designed to promote mathematical discussion and collaboration, including among researchers in the southwest and southern United States.

The conference speakers will present research in algebraic and enumerative combinatorics, algebraic geometry, and both commutative and noncommutative algebra. The speakers are experts in, e.g., the study of singularities in positive characteristic, hyperplane arrangements, combinatorial free resolutions, graded Hecke algebras, and symbolic powers. More information can be found on the conference webpage: https://www.math.ttu.edu/~lchriste/slam2025.html.